Increasing Scientific Literacy for Non-Science Majors Through Team Taught Interdisciplinary Lab Based Courses

Interdisciplinary (99)

The science component of the general education requirements in the Integrative Studies program is being reformed. Five multi/interdisciplinary courses combining two natural science disciplines are being developed at the sophomore level for non-STEM majors. Team teaching is an important characteristic of all the courses with faculty from both disciplines being present in the classroom during all class meetings. The courses, with a laboratory component, are a part of the Integrative Studies program; they are designed with the theme of "human nature" and are focusing on the role of science in society and ethics. The courses are preparing students to enroll in a junior level Integrative Studies Science course that is taught primarily from a single discipline's perspective. Although the courses do not satisfy either major or minor requirements for science majors, STEM majors are enrolling in them to fulfill the General Education Integrative Studies requirements for all students.